Travel Grant for Trip to Attend the Fifteenth Annual International Computer Software and Applications Conference in Tokyo, Japan, September 9-13, 1991

This grant supports international travel for six faculty to the 15th IEEE COMPSAC to be held in Tokyo, September 9-13, 1991. Each faculty member has had a paper accepted for presentation at the conference. In addition, some will chair sessions and serve as panelists.